Doctoral Dissertation Research in Sociology

Identity and ethnicity are real dimensions of the social world, but their content and construction are often misunderstood. Elucidation of the manifestation, if any, and the basis of an individual's identity with a group can provide understanding of the process by which one becomes aware of one's ethnicity. This doctoral dissertation project will investigate the reality of Appalachian identity among individuals living in Appalachia and individuals living in the urban Midwest but originating from the Appalachian region by means of in-depth interviews beginning with a purposive sample and shifting to a theoretical sample as information is accrued. The study hypothesizes that Appalachian identity is based on an individual's awareness of the particular definitions and devaluation of people from the Central Appalachian region by mainstream American society. This identity is a response to negative stereotypes and may also be a response to feelings of being discriminated against on the basis of regional origin. This project will contribute to the scientific understanding of social relationships and the link between individual and society. It also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.